Atomistic and Continuum Models of Solids

E
0708026

The investigator continues work on developing a systematic
mathematical theory of crystalline solids starting from first
principles, with emphasis on understanding the connection between
atomistic/electronic structure models and continuum models. He
and his collaborators study the continuum limit of electronic
structure models such as models in Kohn-Sham density functional
theory. They also study numerical algorithms that combine
Kohn-Sham density functional theory and continuum models. In
particular, they study the accuracy of these algorithms and find
strategies for achieving uniform accuracy. These issues are
critical for understanding the electronic structure models and
making them powerful and practical tools for material science.
The project helps to provide the microscopic foundation of the
continuum mechanics of solids.

From a broader perspective, the project serves as an example
of the kind of work that needs to be done in order to establish
the foundation for multi-scale, multi-physics modeling. It is
now generally recognized across a wide spectrum of scientific
disciplines that the next major advances will come from
multi-scale, multi-physics modeling that integrates models from
quantum mechanics with models from classical or continuum
mechanics. However, due to the lack of a solid foundation, much
of the current activities in multi-scale, multi-physics modeling
are ad hoc in nature. Such a practice defeats the original
purpose of multi-scale, multi-physics modeling. This project is
aimed at establishing the necessary foundation for the case of
crystalline solids. In addition, interest in nanotechnology and
first-principle-based material design demands a much better
understanding of the connection between the mechanical properties
of solids and their electronic structure. Traditional concepts
that are often used in continuum theory will have to be modified
in order to take into account the effects at the electronic
structure level. Establishing such a connection is a major focus
of the proposed project.